Correlation of Radiometric and Biostratigraphic Timescales for the Triassic and Jurassic Murihiku Supergroup of New Zealand

Intercalibration of radiometric and biostratigraphic time scales for the early Mesozoic is not well established. Uncertainties in absolute age assignments to stage boundaries for parts of the Triassic and Jurassic may exceed 30 Ma. This proposal seeks support for high-precision zircon U-Pb age dating of vitric tuff beds that occur within well-preserved fossiliferous strata of the Murihiku Supergroup of New Zealand. This thick clastic succession comprises mainly marine volcanogenic rocks that span most of Triassic and Jurassic time and can be correlated to the international column at key points on the basis of virtually cosmopolitan ammonoids and pteroid bivalves. Preliminary zircon ages from 13 tuff beds spaced through ~6 km of section within the Middle to Upper Triassic portion of the Murihiku Supergroup range from 232 to 204 Ma. On the basis of high-precision Pb/Pb ages from step-wise dissolution experiments, the FAD and LAD for Monotis are constrained to occur within 226 Ma to 218 Ma. It is proposed to complete detailed, comprehensive study of the Middle and Upper Triassic sections of the Murihiku Supergroup, and extending the range of our sampling to include the Lower Triassic and Jurassic portions of the sequence. This work, along with high-precision dating of granitoid clasts from conglomerates in the section, will provide information on sedimentation rates and cycling rates of material between plutonism-uplift-erosion- transport-deposition, and will contribute significantly to understanding the dynamics of basin evolution.